Mathematical Sciences: Studies in Nonparametric and Semiparametric Statistics

The research involves the study of semiparametric and nonparametric statistical models in the presence of censored data. Graphical model diagnostic methods will be developed to compare the hazard experience of two groups in two-sample experiments and for goodness-of-fit tests of the Cox regression model. Confidence band procedures will be developed for nonparametric regression and data-based rules will be given in bandwidth selection problems for hazard function estimation. The relationships between the response variable and predictor variables will be studied through semparametric rate functions and transformation models. Procedures will also be considered for testing independence of paired survival times.